ITR/SI: Multi-Antenna, Multi-User Communications

Future generation mobile wireless communication systems (third generation
and beyond) are expected to provide high data rates, accomodate highly
mobile users, and support a wide variety of services including data, voice,
video and interactive multimedia. Power (battery) limitations and
the scarcity of radio spectrum (relative to the ambitions of such services)
will dictate the need for cellular networks in which these resources
must be used highly efficiently so as to support the continued growth
in demand for wireless services into the future. The
essential infrastructure required at the physical
layer to fulfill this demand is a power and bandwidth efficient,
multi-antenna, multi-user wireless communications technology.

The investigators of this project will develop several key aspects of a
theory of multi-user, multi-transmit antenna communication through a study
of high-performance, interference resistant receivers, signature sequence
designs and multi-user signal constellation optimization. Their goal is to
realize, through simple system design, the power and spectral efficiency
trade-offs that are achievable for multi-antenna wireless communications
over fading channels. While emphasizing fundamental limits, the
investigators will also focus on complexity constrained systems as well.
They will develop results in the theory of multi-user detection and
signature sequence optimization for multiple receive antennas for overloaded
CDMA systems. Generalization of these results will be pursued to coded
modulation and multiple transmit (and receive) antenna systems in order to
further improve the performance and/or achievable spectral efficiencies
through more sophisticated signaling strategies combined with sub-optimal,
complexity-constrained, high-performance multi-user decoding methods.